ADVANCE Institutional Transformation Award: Women in Science and Engineering System Transformation (WISEST)

The goal of the Women in Science and Engineering System Transformation (WISEST)
project, at the University of Illinois at Chicago (UIC), is to increase the number, participation,
and leadership status of women, majority and minority, in eleven science and engineering
(STEM) departments through institutional transformation. WISEST will use an innovative
approach of a network of faculty facilitators from all STEM departments working with
department heads and an executive committee of key administrators and a social scientist.
This network will carry out five integrated and mutually reinforcing strategies: warm the
climate and decrease the isolation of women STEM faculty; recruit minority women faculty
through an unique mentored postdoctoral program; transform STEM departments to foster
diversity and womens leadership; promote womens scholarship and teaching; and improve
the ability to track and report on gender equity. Proposed outcomes for STEM women
faculty include: increased numbers of majority and minority faculty; improved retention
rate; salary equity with men of similar accomplishments and productivity; increased
percentage of leadership positions; improved job satisfaction; and increased national visibility
for our scholars. The intellectual merit of WISEST is that it will assess the impact of
systemic change to erase gender stereotyping rather than individual remediation and it will
specifically extend the focus of action to include the postdoctoral level to recruit faculty. Its
broader impact will be the creation of a life-friendly work climate for all UIC faculty.
WISEST will share its experiences nationally, and serve as an exemplary model for fostering
gender equity and diversity in academe.